Computer-Assisted Real-World Problem-Solving Laboratories for Undergraduate Mathematics

9451308 Irvin A dedicated computer laboratory is being developed to introduce real-world collaborative problem-solving laboratories in precalculus, calculus, linear algebra, and differential equations courses.C The goal of the project is to integrate five major curricular improvements throughout the college-level math classes: To prepare students to work with the kinds of sophisticated mathematical software they will encounter in upper-division math courses or on the job; To incorporate real-world computer-based simulations, applications, visualizations, and problem-solving exercises that will translate the often-theoretical world of mathematics to practical applications that students can identify and handle; To utilize computer-based calculation software to foster student experimentation, manipulation, and problem-solving with mathematical concepts and relationships; To diversify the presentation of mathematical skills and concepts to accommodate the range in learning styles among Howard Community College students; To assist students in developing team skills and collaborative problem-solving techniques.